Extending VLSI Layout Strategies to Geometric Synthesis of 3-Dimensional Mechanical Systems

This research is on exploring algorithms for 3-D mechanical component arrangement that derive from successful strategies in use for 2-D VLSI problems. The research approach is to develop the critical connections and extensions between the core geometric synthesis algorithms in 2-D VLSI layout and 3-D solid modeling that will yield efficient mechanical shape synthesis tools, which support productivity and rapid exploration of novel 3-D component arrangements. Basic stochastic optimization techniques, shape representations, and optimization-control techniques are being used to: * Arrange 3-D mechanical components (extending VLSI placement strategies); * Route tubes, cables and wires in three dimensions (extending VLSI routing strategies); * Algorithms for designing to meet criteria such as; vibration, thermal, space constraints, component balance, manufacturing, maintenance, accessibility, and human factors (extending linear analysis methods from circuit design); * Support rapid redesign of families of products.